SING: Efficient Survivable Routing in Next Generation Networks

This research involves the design and analysis of efficient algorithms for survivable routing
in next generation networks. Current research in this area are either heuristic based that
lacks performance guarantee, or computationally intensive that lacks scalability. The PI
concentrates on efficient survivable routing in a very important class of network topologies
known as minimum isolated failure immune networks. Efficient algorithms will be designed for
survivable routing in such networks. This transformative research will provide a solid
theoretical foundation for survivable routing in next generation networks.

The INTELLECTUAL MERIT of this research lies in exploring a new dimension of research in
survivable routing in next generation networks, using combinatorial optimization and
algorithms as tools of investigation.
The research will extend the frontiers of knowledge in survivable networks in the following
directions: (1) improving heuristic based or integer linear programming based algorithms
for survivable lightpath routing in mesh network to polynomial time optimal algorithms for
survivable lightpath routing in minimum isolated failure immune networks; (2) extending
heuristic based QoS-aware redundant tree schemes to QoS-aware redundant tree schemes with
provably good performance; (3) extending heuristic based double-failure protection to
guaranteed double-failure protection.

In terms of BROADER IMPACTS, this research will lead to (i) integration of research into
educational experiences of students at the undergraduate and graduate levels, especially
students from underrepresented groups;
(ii) unification of seemingly diverse disciplines which have common underlying mathematical
foundation; (iii) dissemination of research results through presentation and publication
in high-quality conferences and journals.